Theoretical Studies on Wave and Particle Dynamics of Hydromagnetic Alfven Waves in the Earth's Magnetosphere

This grant will focus on extending previous theoretical studies on dynamical properties of hydromagnetic Alfven waves in the Earth's magnetosphere. A short wavelength gyrokinetic formalism will be employed to study 1) the wave excitation mechanism in anisotropic, high-beta magnetospherice plasmas, and 2) the corresponding particle flux oscillation including the crucial finite Larmor-radius effects. Results from (1) and (2) will then be compared with observational data to provide some definitive answers to the wave free energy source(s) and generation mechanism(s). In addition, feld line resources in magnetospheric plasmas including finite plasma pressure and effects of field line resources on wave excitations will be studied. The theoretical results should therefore provide significant new physical insight and quantitative predications about geomagnetic pulsations in the Earth's magnetosphere.***